U.S.-Pakistan Collaboration on Hadron Substructure at High Energies

Description: This project supports the travel and living expenses for Dr. Pervez Hoodbhoy of the Department of Physics, Quaid-I- Azam University (QAU) in Islamabad, Pakistan, to participate in a research project with Drs. John W. Negele and Robert L. Jaffe at the Massachusetts Institute of Technology, Cambridge. The project will be in the area of quantum chromodynamics (QCD), the role of quarks and gluons in determining the structure and properties of hadrons and nuclei. This area has been subject of research by the theoretical physics group at MIT for some time. Broad issues of the joint research include: development of nucleon models incorporating known constraints imposed by QCD; spin structure of the nucleon; calculation of elastic scattering form factors for composit systems of quarks and gluons; direct excitation of quark and color degrees of freedom in various reactions; direct measurements of quark momentum in very high energy deeply inelastic electron scattering from hadron targets; and creation of abnormal states of hadron matter and detecting their signatures in relativistic heavy ion collisions. Scope: This project extends collaboration, by the Pakistani scientist with the MIT group, that has started in the late 1980's and that has resulted in a number of joint publications. The past collaboration produced significant results in the field and enhanced the capability of the QAU group to conduct research and to publish. In addition, there has been exchange of scientists and garduate students between the two groups. The project meets the objectives of the Science in Developing Countries program.